A Symposium: Biochemistry and Molecular Biology of Beta- Glucosidases, Washington, D.C., August 23-28, 1992

A Symposium entitled "The biochemistry and Molecular Biology of Beta-Glucosidases" has been organized and will be held in conjunction with the Annual Meeting of the American Chemical Society in Washington, D.C., August 23-28, 1992. The symposium will include three sessions and will last one and one half days. Eighteen leading research have been invited to review their past and present their current research on the Beta- glucosidase they are studying. Topics will include (1) the purification and characterization of Beta-glucosidases from plants, humans, insects, fungi, and bacteria; (2) the mechanism of catalysis: (3) isolation, characterization, and manipulation of Beta-glucosidase genes: and (4) use of Beta-glucosidases for biomass conversion in industry. Symposium papers will be collected into a book to be published by the American Chemical Society Books Department. %%% Current research on Beta glucosidases has significant scientific and economic implications. Plant enzymes are implicated in growth productivity, food and feed toxicities, fungal and bacterial enzymes could be used in the industrial conversion of cellulose to glucose; and human enzyme deficiency is the cause of Gaucher's disease.